A New Spectrograph for the University of Hawaii 2.2-m Telescope

A versatile and efficient low- to moderate- resolution spectrograph for general use on the University of Hawaii's 2.2-m telescope on Mauna Kea will be constructed. While the spectrograph will be capable of carrying out a full range of conventional imaging and spectroscopic programs, special attention has been given to three specific areas important to users: (1) high-angular-resolution spectroscopy, (2) a spectral range from 3600 A to 2.3 um available in a single instrument, and (3) an easily accessible slit environment capable of taking a wide variety of slits, aperture plates, and image slicers. The instrument will be able to function in conjunction with a piezo- electrically-driven f/35 secondary currently being developed to provide fast guiding for high-resolution imaging and spectroscopy. The versatility of this instrument-particularly its abilities to switch between imaging and spectroscopic modes in a matter of seconds and to work over a wide spectral range- will make "block scheduling" of the telescope a more feasible option. The consequent reduction in frequency of instrument changes can be expected to improve the operation of the entire facility.